Time-Dependent Changes in Social Judgement and Choice

In everyday life, people judge and make decisions about events that will take place either in the relatively near or distant future. Examples include decisions about future education, jobs, close relationships, and health-related events. This program of research investigates how temporal distance from future events influences judgments and decisions regarding those events. It is hypothesized that people will use more abstract thinking when considering distant future events than when considering near future events. As a result, judgments and decisions regarding distant future events are more likely to be based on relatively general, superordinate, and decontextualized features, whereas judgments and decisions regarding near future events are more likely to be based on relatively specific, subordinate, and contextualized features of the events. A series of experiments will test this hypothesis and its implications for time-dependent changes in information processing, predictions, and preferences regarding future events. The findings are expected to identify advantages and disadvantages of decisions at different points in time, and will ultimately help us understand and improve the way people think, plan, and make choices about their future.